Research Experiences for Undergraduates in Chemistry at Mississippi State University

9322008 Eglin Dr. Judith Eglin and other members of the Chemistry Department of Mississippi State University are being supported for a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1994-6, eight students will spend ten weeks each summer actively engaged in a variety of projects. Projects cover the traditional areas of chemistry-analytical, inorganic, organic, physical and biochemistry. A unique feature will be the focus on four year colleges particularly on those lacking research programs in the region.